Non-Equilibrium Phenomena in Nematic Liquid Crystals

Large-scale molecular dynamics simulations will be carried out on a model liquid crystal system to study a variety of non-equilibrium phenomena. The phase ordering dynamics of a quenched nematic liquid crystal will be investigated with a special emphasis on the role of the topological defects in the equilibration process. A very rapid quench of a nematic below its crystallization point will be undertaken in an effort to create and study an anisotropic glassy system. Algorithms will be developed so that the simulations can run efficiently on massively parallel machines. If successful, this work will further the understanding of non- equilibrium phenomena in complex fluids and anisotropic systems, as well as providing the first numerical simulations of topological defects in fluid systems. It will also further develop the computational approach required to efficiently run molecular dynamics simulations on massively parallel machines. This research is jointly supported by the Divisions of Materials Research and Advanced Scientific Computing as part of the Computational Approaches to Real Materials Initiative which is a component of the High Performance Computing and Communications Initiative. %%% This computational research will focus on understanding the properties of liquid crystals, such as are used in video displays, when they are rapidly cooled. During the cooling process various defects are frozen into the liquid crystal and affect its properties. This cooling process is too complex to be modeled analytically and is only amenable to computational analysis. Thus, this project, which is jointly funded by the Divisions of Materials Research and Advancd Scientific Computing, involves both condensed matter physicists and computer scientists. The computational work will be implemented on the emerging parallel computers. The research is supported through the Computational Approaches to Real Materials program within the High Performance Computing and Communication Initiative.